ACSB 2015: A Conference on Algebraic and Combinatorial Approaches in Systems Biology

The conference "Algebraic and Combinatorial Approaches in Systems Biology" (ACSB 2015) will be held at the University of Connecticut Health Center during May 22-24, 2015. The primary goal of the conference is to provide a venue for researchers to share recent advances in applications of computational algebra and combinatorics to biology. The conference will consist of talks by invited speakers, contributed talk,s and a poster session. This grant helps to defray the expenses of the invited speakers and also to provide transportation and lodging for graduate students, postdoctoral researchers, and other junior researchers attending the conference.

The previous two decades have witnessed the emergence and acceleration of a new paradigm in mathematical biology, which employs advanced methods in computational algebra and discrete mathematics toward modeling biological systems. In molecular biology in particular, rich libraries of gene regulation, protein-protein interactions and high-throughput gene expression profiling enable the construction of increasingly granular discrete models, which require the development and analysis of new algebraic and combinatorial techniques. Whereas traditional methods in mathematical biology benefit from a robust infrastructure of journals, organizations, and conferences, such infrastructure for algebraic and combinatorial biology is still taking shape. A core objective of this conference is to consolidate the ACSB as a national forum for the presentation, discussion, and integration of current work in the field. ACSB 2015 will focus on diverse aspects of modeling of molecular networks, in particular gene regulatory networks, with an emphasis on discrete modeling approaches, including stochastic aspects of networks. In addition to models of specific molecular networks, it will explore questions such as the relationship between network structure and their dynamics and design principles of molecular networks. Both mathematical and biological aspects of molecular network modeling will be discussed, and the conference will open with talks on both.

Conference web site: http://acsb2015.cqm.uchc.edu/